PostDoctoral Research Fellowship

This is a post-doctoral travel grant to allow a professional meeting and consultation between Adam Fudickar (PI) and Dr. Marilyn Ramenofsky at the University of California, Davis. During the meeting, Dr. Fudickar and Dr. Ramenofsky will discuss the structure of a potential proposal to address the potential response of arctic breeding migratory birds to climate change. The visit will also provide the opportunity for Mr. Fudickar to visit the research facilities at UC Davis and discuss the project proposal with other researchers in the Department of Neurobiology, Physiology, and Behavior.